Gordon Research Conference on the Chemistry and Physics of Microstructure Fabrication - July 11-16, 1988 in Wolfeboro, N.H.

A proposal is made for subsidies that will allow greater participation of graduate students in the 1988 Gordon Research Conference in the Chemistry and Physics of Microstructure Fabrication, July 11-16, 1988 in Wolfeboro, N.H.